1990 Symposium on Interactive 3D Graphics will be held in Snowbird, Utah on March 25-28, 1990

This is is a three-day symposium on interactive 3-D graphics. Its focus is on the current frontiers in real-time interactive 3-D graphics. Some of the questions of interest are what special-purpose architectures are on the drawing board, what are the most user-friendly paradigms for interactions with such systems, and what applications have not been sufficiently addressed.